Travel Grant: Moriond Workshop on Tests of Fundamental Lawsin Physics; Les Arcs, France; January 20-27, 1990

Request funds to cover travel and local expenses for eight young US Scientists (post-docorates and graduate student) to participate in the Moriond Workshop on "Tests of Fundamental Laws in Physics" Les Arcs, France, January 20-27, 1990.